The Queens Borough Bridge

The Queens Borough Bridge, a consortium among Queensborough Community College, Queens College, and Brookhaven National Laboratory, is increasing the enrollment, retention and graduation of STEM students by incorporating design issues that have been shown to contribute to success in the early stages for STEM majors. This includes research experiences beginning in students'' first year and extending throughout their undergraduate careers; a peer support component that engages students in research and education using small cohorts to build camaraderie and commitment to STEM; personal attention through faculty mentoring; Peer-Led Team Learning (PLTL) Workshops; peer tutoring and advisement; and bridges to the next level to smooth pathways to baccalaureate degrees. The project is also engaging in targeted recruitment via existing high school programs and continuous evaluation of each project component.

The broader impact includes serving as a model for other two-year/four-year partnerships, particularly within CUNY, the nation''s largest public urban university. This model is useful given the role of community colleges in STEM talent expansion with an average of 44% of science and engineering graduates attending community colleges. The project''s design and outcomes are being shared through colloquia and publications, existing regional and national networks, links with professional societies, and made available to institutions across the state and nation via the Internet.